Gromov-Whitten Theory and its Relations With K-Theory, Integrable Systems and Enumerative Geometry

DMS-0072547
Yuan-Pin Lee

Quantum cohomology is a deformation of usual cup product
of ordinary cohomology ring of a smooth projective variety X. Similarly quantum K-theory is a deformation of ordinary
K-ring of X. In their study of Gromov--Witten K-theory,
Professor Lee and his collaborators have found some interesting relations to other fields in mathematics and physics including algebraic geometry, integrable systems, representation theory
and quantum geometry. These investigations also naturally lead
to further investigations of Gromov--Witten theory itself. The
main focus of this project will be on quantum cohomology, quantum K-theory and their relations to discrete KdV hierarchies, Toda lattices, and enumerative geometry.

Gromov-Witten theory is a new subject that lies within the
intersection of many traditional branches of mathematics and
theoretical physics. This theory was originally discovered
within string theory. Shortly thereafter people found many new applications to mathematics. Some of these applications solved
problems that, based on traditional methods, were considered to
be very difficult. The tools used to study Gromov--Witten theory
also involves many fields, including algebraic geometry, topology
and analysis. Thus, this is a growing new field which exhibits
many rich structures and deserves further investigation